Cohomology of locally symmetric spaces and applications to number theory

The cohomology of locally symmetric varieties plays an important role in
number theory and in particular Langlands's program. One reason is that
they are examples of spaces exhibiting an action of both a Hecke algebra]
and a Galois group. A fundamental goal is to relate these actions and the
corresponding L-functions. In previous work, the principal investigator
created a new tool, L-modules, to study such cohomology. In the current
project, the principal investigator proposes to incorporate Hecke and
Galois actions into L-modules. He will also prove a "decomposition
theorem" for L-modules and apply it to construct cycles associated to
sub-locally symmetric varieties.

The proposed research studies symmetry in geometry and number theory.
Applications of geometry and number theory abound, for example to
cryptography and crystallography. A symmetry in geometry is a
transformation of space which doesn't change distance, for example a
rotation. In number theory a symmetry is a transformation of a number
system that transforms the sum of two numbers into the sum of the
transforms and likewise for the product, for example complex conjugation.
In both subjects, the most interesting objects are those which remain
unchanged under many symmetries. For example, in geometry the sphere is
invariant under all rotations, while in number theory the set of roots of a
polynomial equation with integer coefficients are invariant under all
symmetries. The investigator's research concern higher-dimensional objects
which possess both geometric and number theoretic symmetries, and the
relations between these symmetries.